STTR Phase II: Advancing Health Equity using Interactive Condition Assessment and Monitoring

The broader impact/commercial potential of this Small Business Technology Transfer (STTR) Phase II
project is to potentially improve patient outcomes and reduce healthcare costs by enhancing communication
between patients and their medical providers. In the U.S., 78.9% of misdiagnoses are caused by
miscommunication, resulting in 80,000 to 200,000 avoidable hospital deaths each year, and 56.3% of
those communication gaps are related to the history-taking during the patient-provider encounter.
Enhancing communication in healthcare is crucial for improving both the efficiency and quality of
healthcare services. LiteraSeed’s project proposes Electronic Health
Record (EHR) integration and Natural Language Processing (NLP) data extraction to enable automated
chart review, facilitating possible access to critical patient data and allowing health systems to reclaim previously
lost revenue due to the misclassification of patient risk.
This project aims to improve the long-term efficiency of our healthcare system by addressing incomplete
and conflicting EHR information, providing alerts of vital medical history, and mitigating the effects of
poor health literacy, all in an effort to help empower the patient.

The proposed project performs Electronic Health Records (EHR) integration of the platform and integrates it with Natural Language Processing (NLP) to extract valuable information from complex and unstructured medical records. These learnings led to the prioritization of three major technical
objectives: (1) EHR integration to simplify workflow and enhance access to patient data, (2) enhancing
the ML/AI risk assessment model by incorporating NLP techniques for extracting valuable information
from complex, fragmented, incomplete, and contradictory medical records, and (3) conducting validation
testing by clinicians to ensure the reliability and efficacy of ML/AI outputs. The integration of NLP for
data extraction, combined with the patient’s self-reporting, ensures a comprehensive and accurate
representation of the patient's present condition and medical history. This innovation could enable
real-time risk adjustment, expedite patient care, address missed care opportunities, and boost revenue
in global capitation and value-based care delivery models.